Planning Earth-Science Education in the Community -- Understanding Our Environment

9450512 Brunkhorst The American Geological Institute (AGI) proposes to coordinate the development of earth science curriculum and student learning materials for grades 7-12. In Planning Earth Science Education in the Community -- Understanding Our Environment, AGI will build on the strength of very successful earth science education projects, the AGI Earth Science Curriculum Project materials and Earth Science Content Guidelines Grades K-12, as well as major science education curriculum and reform programs such as AAAS' Project 2061. EarthComm will provide a complete educational program in the earth sciences that includes learning materials, teacher resources (both materials and teacher networks), and assessment tools for a hands- on, student inquiry-based, instructional program that is interdisciplinary and allows implementation in a modular format. The proposed project will also target the development of a strong mentor program to enhance the science teaching capabilities and leadership skills of teachers.